An Undergraduate, Robotics Application, Instructional Workcell.

A Technovate robotics instructional workcell will be installed in the multi-disciplinary center for computer-integrated manufacturing. It will enhance and broaden the scope of undergraduate instruction in robotics and enable new experiments in system integration and campus network interfacing. The workcell is particularly adaptable to electronics manufacturing applications and has the capability for off-line programming. The workcell includes an IBM 7535 industrial robot with Z- 80 microprocessor, an IBM PC with AML/E robotics software for off line programming, and safety interlocks. The open systems architecture will allow experimentation linking the cell with an existing Zilog development system.